Catalytic Air Cleaner

The feasibility of the double spiral reactor/heat exchanger was shown in Phase I. Phase II research comprises three main tasks: 1. To design and build a spiral reactor that closely resembles the commercial model. 2. To determine its performance. 3. To develop an improved mathematical model of the reactor. The aim of Task 1 is to make the spiral reactor leak tight, heat tight, and of minimum weight. Task 2 will include measurements of temperature and heat transfer coefficients. The improved model from Task 3 will be used to calculate the dimensions of a commercial reactor for any given flowrate and heat input. The goals in Phase II are to produce: 1. A procedure for manufacturing the double spiral reactor and an estimate of the cost. 2. An improved mathematical model. 3. Experimental data to confirm the model. This Phase II SBIR research is to bring to technical commercialization a device for cleaning contaminated air in confined working and living spaces. The decontamination is to be accomplished by incineration, and the novel feature of the device is the attainment of the requisite temperature level without causing intolerable heating of the confined space whose air is to be cleaned. The Phase I work demonstrated that the temperature level could be attained. Phase II must deal with the heat loss issue as well as with the manufacturing of the device.